Aerial Wells: Water from the Air

Aerial wells, a device used in antiquity, are mounds of rocks which collect moisture from the air and release water. They work best in arid regions where solar heating and radiative cooling are large. The program will demonstrate that "hydrogenesis", an apparent natural phenomenon, is the principle exploited in the aerial well. A working hypothesis asserts that water is collected by diffusion into micro pores of rocks and that there is enough diffusion potential for water to collect at temperatures above the dew point of the free air. Analytical models of controlling phenomena, water collection, retention and release are being developed to explore the well's performance. The models are based on Fick's diffusion equation, Marangoni's effect and Gibb's free energy equation. A one-dimensional computerized model is being developed in Phase I of this SBIR project. This model is to provide insight into the controlling phenomena as a function of independent variables including humidity and temperature, as well as optimum material properties.